Analytical and Experimental Study of Instabilities in Buoyancy-Driven Convection in Porous Media

Two-phase disordered media are most frequently encountered in modern technological applications of the physical and chemical sciences. A common example of such media is heterogeneous mixtures consisting of a fluid phase dispersed in a solid porous medium. The mission of the proposed research is to study thermal instability phenomena associated with buoyancy- driven convection in two classes of fully-saturated systems: (i) porous media saturated with pure fluids, and (ii) porous media saturated with binary fluids. We propose a rigorous analytical and experimental program to investigate pattern formation during natural convection in large aspect ratio enclosures filled with porous media. Our primary objectives are: (1) the delineation of the various stability domains for the convective flows and an exploration of the convective states after the onset of secondary instabilities, (2) the development of novel experimental techniques, including non- invasive magnetic resonance imaging, for high precision measurements and determining the flow patterns in porous media, and (3) the validation of macroscopic governing equations for natural convection in porous media.